Theoretical Physics

A broad program of research in theoretical physics and theoretical astrophysics, involving many postdoctoral scholars and visitors, will be carried out. Topics will include the string theory of the elementary particles and the basic forces, the solar neutrino problem, quantum field theories of the elementary particles, neutrino astrophysics, and astrophysical processes. The program will serve not only to address interesting questions and produce important new results in physics and astrophysics, but also as a training ground for the postdoctoral scholars.